Explicit Approaches to Elliptic Curves, Modular Forms and Modular Abelian Varieties

Intellectual Merit: The projects in this proposal would generalize the highly
influential tables of Cremona to the next (ordered by discriminant) totally real
number field and to higher dimensional modular abelian varieties. This would
improve on algorithms available for computing with elliptic curves and abelian
varieties, and provide useful data and tools for number theory researchers. The
proposed research would also advance techniques for constructing points and coho-
mology classes on elliptic curves, and for understanding the arithmetic of elliptic
curves over number fields. This project would have as a concrete deliverable new
publicly available tables and software that will be of use to many number theorists.

Broader Impact: The PI is co-authoring a popular expository book with Barry
Mazur on the Riemann Hypothesis, co-authoring a graduate level book with Ken-
neth Ribet on modular forms and Hecke operators, and intends to release a new
edition of his modular forms book. The PI has tables of data that are freely avail-
able online, and whose creation has been supported by NSF FRG grant DMS-
0757627, and the proposed research would expand these tables further. He will
also continue to organize the development of the free open source NSF-funded
Sage mathematical software project that he started. The PI organizes dozens of
"Sage Days" workshops that involve many undergraduate and graduate students,
and touch on number theory, algebraic topology, combinatorics, special functions,
numerical computation, and other areas. The PI is also a co-PI on the UTMOST
NSF grant (DUE-1020378), whose goal is to make Sage more accessible to high
school and college teachers and students.